Engineering Research Center for Advanced Combustion

This award is to support research, education, and technology transfer activities at the Advanced Combustion Engineering Research Center at Brigham Young University and the University of Utah. The goal of the Center is to develop fundamental engineering knowledge and tools aimed at the solution of combustion related problems encountered in the utilization of low-cost, low grade or non-conventional fuels, and in the control and disposal of hazardous wastes. The principal emphasis is on the development of complex systems models to be used in low-grade coal combustion, coal gasification, char or coal/water slurry combustion, and catalytic combustion. Specific research activities focus on: 1) combustion process modeling and control, 2) physical and chemical characterization of fuels, 4) combustion process performance characteristics, and 5) hazardous emissions and control. These five areas are the key elements needed for complete design, optimization and control of advanced combustion technologies. The recommended budge includes funds for Research Experiences for Undergraduates.